Larval Release Rhythms and Control of Egg Hatching in the Cardian Shrimp Palaemonetes Pugio.

The primary objective of the project is to develop a competitive research proposal on "Larval Release Rhythms and Control of Egg Hatching in the Cardian Shrimp Palaemonetes Pugio." Support of the project will assist a well trained biologist to improve his research capability and to complete the planning and development of a regular MRI proposal. The planning activities, if successful, will significantly enhance the potential of the investigator to compete for MRI and other research support.